Coevolution and Specificity in a Legume-Rhizobium Symbiosis

This research project will allow the analysis of, the process of coevolution between a native annual legume and its associated root-nodule bacteria. This work will answer three basic questions about the evolution of intraspecific divergence in symbiotic compatibility in legume-Rhizobium mutualisms: (1) Do plants and bacteria exhibit similar patterns of population differentiation? (2) Are Rhizobium genotypes from each local population preferentially adapted to enhance the growth of co-occurring plant genotypes? (3) What constraints limit the evolution of phenotypes with either extreme symbiotic diversification or extreme specialization? The major significance of this work will be to provide new insights about how plants and microbes influence each other's ecology and evolution within natural communities by integrating laboratory experiments, field experiments, and joint analyses of genetic structure in host and bacterial populations.